Student Travel Support for the Twenty-First International Conference on Parallel Architectures and Compilation Techniques (PACT), 2012

This grant provides support to broaden participation in the Twenty-first International Conference on Parallel Architecture and Compilation Techniques (PACT12), to be held in Minneapolis, Minnesota on September 19-23, 2012. PACT is the premiere forum to bring together researchers from architecture, compilers, applications and languages to present and discuss innovative research of common interests. The grant will primarily fund US citizens/residents, and the highest priority will be given to under-represented groups. Attending the conference is an important educational/training experience for the participants and helps create the next generation of researchers in this area.